POLAR-PALOOZA

This project proposes using three complementary strategies to engage, inform and inspire large audiences. (1) A national tour called "Stories from a Changing Planet" that will include in-person presentations and hands-on activities by Polar scientists at science centers, museums, libraries and schools across the country. (2) the "HiDef video Science Story Capture Corp" team of professional videographers HD footage will be made available as public domain materials accessible to government research agencies, universities,science centers and others. (3) Video and Audio podcasts distributed throught iTunes, google, Yahoo and IPY websites. The project will have front end, formative and summative evaluations.